Application of Statistical Physics Methods and Concepts to the Study of Science & Technology Systems

This research proposal will utilize a multi-disciplinary approach using principles of statistics and physics to identify statistical characteristics of scientific and technology (S&T) systems. Variables will include scientific field, level of aggregation, and international comparisons. Data used will include R&D funding and personnel, including NSF sources, patents, and publications. The PIs will examine issues such as if the level of aggregation or funding level is critical for scientific productivity.